EIA: Development of Adaptive Controllers for Electric Power Generating Units Using On-Line Computers

Research aimed at development of techniques for design of adaptive controllers for generating unit excitation, governor and stabilizer loops. These are to be digital designs for both identification of model parameters and the loop control strategy. The designs are to be used on-line and in real-time. New techniques for the design of generating station controllers.